Lossy Dynamic On-line Data Compression

This project explores an approach to image compression that is based upon extention of ideas successfully employed in the losslesss compression of one.dimensional textual data; e.g., the Lempel-Ziv text-compression algorithm. The extentions involve the fact that image and video data can be regarded as two- and three- dimensional data sets and also that lossy compression can be used in order to achieve higher compression ratios. A key feature of this research is the consideration of hardware implementation issues. By using a massively parallel systolic architecture, it is anticipated that a VLSI implementation of real-time compression of high definition video signals can be achieved.